CAREER: Achievable QoS and Scheduling Policies for Integrated Services Wireless Networks

In integrated services wireless networks, geographically distributed heterogeneous applications must share a common wireless channel. To coordinate the sharing of the transmission resources, a multiple access protocol such as time-division multiple access (TDMA) or code-division multiple access (CDMA) is required. To control QoS in an integrated services network, usually both call admission and resource management (scheduling at the packet level) among the admitted calls are needed.

At call admission, it must first be determined if there exists a slot allocation (as in the case of TDMA) or power management (as in case of CDMA) policy that can deliver a target QoS to each application in the
network. To answer this question, the region of achievable QoS (set of performance vectors that can be delivered under any admissible policy) needs to be identified. The region of achievable QoS will depend on the underlying channel conditions and the multiple access technology. Each access technology has its inherent advantages and disadvantages in combating the effects of the wireless channel and in its ease of accommodating variable rate service while delivering diverse QoS requirements. The determination of the region of achievable QoS leads to the development of call admission and scheduling functions.

The PI has been conducting research in the area of integrated services over wireless networks for the past five years and now proposes to translate some of his and others prior research into viable technology
and educational tools through the development of an integrated services wireless network (ISWN) test-bed. The ISWN project is multifaceted in the sense that it contains educational, development, and research components. The project will be implemented in three phases: system design and specification, development of novel approaches to support multi-media traffic and software implementation in an operational system.